The Region of the Baikal Rift, a Cooperative Program of Analysis

9406378 Meyer This research is to analyze a unique 30-Gbyte, 70-site seismic data set as a result of 1991 and 1992 deployments, supported elsewhere, of portable digital-recording three-component long- and short-period seismographs in coherent arrays in central Russia. These arrays covered representative parts of the Siberian craton, the Baikal uplift, the Baikal Rift, and the mountains and steppes south of the lake extending into Mongolia. This will be a coordinated joint analysis between the Institute of the Earth's Crust, Irkutsk, and the University of Wisconsin-Madison. Questions to be answered are is the Baikal Rift today a passive or an active tectonic feature, and perhaps, what was it at its inception? The results will be compared with other Cenozoic seismically-active rifts, for example Kenya and Rio Grande, being studied today, using the same tools and methods. This research is a component of the National Earthquake Hazard Reduction Program. ***